Homotopy Theory and its Applications

9977089
Goerss
Throughout different fields of mathematics, it is important to
understand how various objects acquire some sort of multiplication.
For example, in homotopy theory, which is the study of mathematical
phenomena that remain invariant under continuous deformation, one
wants to decide if an object has a multiplication that is commutative
up to all ``higher homotopies'' -- this is the type of multiplication
that is invariant under deformation. One way to discuss this issue is
with the device of opera, which make rigorous the phrase ``higher
homotopies.'' Goerss intends to develop and explore these ideas in
the context of homotopy theory; for example, he would like to discuss
when a spectrum has an operad multiplication, and to discuss the
implications of the fact that the cochains on a topological space have
such multiplications.
The broad goal of this project is to further understanding of
homotopy theory, the branch of topology concerned with properties of
higher-dimensional surfaces and other geometric objects that remain
invariant under continuous deformation. There are some surprising
and rather mysterious connections between homotopy theory and seemingly
unrelated fields of mathematics such as number theory and algebraic
geometry, and one hopes the project will ultimately illuminate these.
***